Cosmogenic Radionuclides in the GISP II Ice Core: 10Be, 26A1, and 36C1.

This award supports a study of cosmogenic radionuclides in the GISP2 ice core. Accelerator mass spectrometry techniques will be used to measure Beryllium-10, Aluminum-26 and Chlorine-36 isotopes at selected depths on the core. The results will be applied to dating ice cores and deducing the history of solar activity and variations in the geomagnetic field. These analyses will also be useful for studying climatic history through effects of atmospheric circulation and atmospheric chemistry on nuclide deposition.